A Workshop on Northern Education and Indigenous Issues

This workshop takes Alaska Native students attending the College of Rural Alaska to an international forum to present their own research on arctic economies, self-government arrangements, and environmental management practices. They will meet other students, faculty and staff from circumpolar universities and establish a researech network for indigenous students in the arctic.